Research Initiation Award: Velocity Measurements in a Simulated Microbust

Funded by a Research Initiation Award, experimental research will be carried out on microbursts. Microbursts are intense downdrafts which can occur during intense thunderstorms. Experimental information is lacking, and this research will create laboratory simulations with heavy saline water in a water tank experiment with otherwise freshwater. Flow visualization and particle imaging velocimetry will provide data on the dynamics of microbursts and their interaction with the ground. Microbursts have been responsible for the catastrophic crashes of aircraft, and their structure and development is still largely unknown.